NSF Young Investigator/Surface Chemistry of Organometallics

This National Science Foundation Young Investigator project is in the general area of analytical and surface chemistry and in the subfield of materials chemistry. During the five-year tenure of this award, Professor Greenlief and his students will carry out a fundamental investigation of the decomposition of organometallic containing magnetic metal centers as a possible route to the creation of atomically thin magnetic films. Emphasis will be placed on the elucidation of reactive intermediates as well as the determination of the reaction rates of the decomposition reactions. %%% The successful attainment of the goals of this project should enable broad advancement in the area of materials chemistry, in general, and the study of atomic-scale magnetic films in particular. The research is technologically significant because of the potential for development of thin magnetic films with atomic control. Furthermore, this NSF Young Investigator Award will significantly assist Professor Greenlief to establish a viable, innovative research program at the University of Missouri.